Scientific Computing

The Department of Mathematics at Iowa State University is hosting a summer NSF-REU program which has scientific computing as it's theme. Scientific computing has become a powerful and essential tool in conducting research in science and engineering. The goal of this program is to expose a small group of undergraduates to research in an application area which uses scientific computing. The program will be conducted for eight weeks during the summer months. To be eligible for participation in the program the applicant must be a citizen or permanent resident of the United States. The participants should have at least the equivalent of two years of calculus and come computing background. Each participant will be involved in an ongoing research project which will include at least one faculty mentor, a graduate student and two to three participants. The research topics that are proposed cover a wide range of aspects of scientific computing such as modeling, grid generation, numerical simulations, and visualization of simulations. The projects will give the participants an introduction to applications areas such as computational biology, fluid dynamics, porous media flow, modeling of chemical reactions, and superconductivity. In addition to the research project, participants will attend workshops on the computational tools that will be needed to complete their project as well as some topics in mathematics that are not usually covered at the undergraduate level. At the end of the eight week period the students will write a paper which will appear in the Department's preprint series and the students will also give a multi-media presentation on their research project.